Incoherent Scatter and Associated Studies of Solar Wind: Magnetosphere-Ionosphere Coupling in the Vicinity of the Polar Cleft

The interaction of the solar wind with ionized gas confined by the earth's magnetic field results in a long extension downwind, to a distance of hundreds of earth diameters, of the magnetic field and gas (the magnetosphere) and the generation of currents of millions of amperes. These currents (Birkeland, or field aligned currents) link the solar wind - magnetosphere boundary region (about 60,000 km above the surface), with the highly conducting ionosphere (about 100 km above the surface), and create the striking displays of light emission known as the aurora. They also disturb the ionosphere, and cause interference with radio transmissions and military radar communications. This award is for a study aimed at improving our understanding of the electric fields associated with the generation of the current systems, using the scientific radar at Sondestrom Greenland, and a chain of magnetometers.